BAC: Visuomotor Control by Large-Scale Distributed CorticalNetworks

PI: Steve Bressler Visuomotor Control by Large-Scale Distributed Cortical Networks The aim of this research project is to understand how different parts of the brain work together to allow us to move based on what we see. These scientists are designing sophisticated computer analysis techniques to measure properties of brain signals that occur when the brain must interpret visual patterns and use the information to make a movement. Previous results from this project showed that brain waves from many parts of the cerebral cortex, including but not limited to visual and motor parts, briefly become aligned when the brain is deciding how to respond to a visual pattern. This suggests that the alignment of wavelike signals from many parts of the cortex is important for brain function. The objectives of this project are: (1) to observe how the normal brain processes visual input signals and transforms them into motor command signals, and (2) to advance our general understanding of similar large- scale integration problems which arise in many engineering applications.